Project Butterfly WINGS: Winning Investigative Network for Great Science

"Project Butterfly WINGS" is a three-year project targeting 4th-8th grade participants in 13 Florida counties. This project includes the use of the 4-H network as a partner to recruit participants. It builds on the development of student-scientist partnerships to create an environment where information, data and ideas can be exchanged. This project will focus on collecting data on butterflies and the environments/habitats the butterflies choose to visit. This project brings together several important elements to present an interactive, authentic, research-based SSP activity supported through an established network of ISE providers, educators and community-based organizations. Based on solid research and knowledge about ISE approaches, the project has strong content connections and a well-designed structure. An interactive web-site will provide opportunities for participants to interact with each other and with participating scientists, and to experience firsthand some of the most interesting aspects of engaging in scientific inquiry. WINGS has the potential to create a network of young people who will be more aware of issues related to biodiversity and the environment. Through its model approach and participant outcomes, "Project Butterfly WINGS" is positioned to make a difference in the ISE field and in the lives of its participants